Workshop on Morphology-Syntax Interface in Athapaskan Languages, Albuqerque, New Mexico, July 1-5, 1995

9422283 A five-day workshop during the 1995 Linguistic Society of America Summer Institute at the University of New Mexico will be devoted to the investigation of issues in the interaction between morphology and syntax in Athapaskan languages, some of which have figured very large in current theoretical discussions in linguistics. One day of the workshop will be set aside for presentations and discussions on each of four topics, with a fifth day for presentation and discussions which draw the topics together. The themes for the first four days of the workshop are: (1) third-person pronominal forms and their representations, (2) the status of the dichotomy between inflection and derivation, (3) clause structure, and (4)relations of morphology and syntax with phonology. These topics address two major typological questions for which Athapaskan languages have been vital sources of data and hypotheses: the nature of syntactic configurationality, and the necessity for 'position class' morphology. Workshop participants will include scholars and students of Athapaskan, many of whom will be assembled at the Institute participating in the Athapaskan conference and in three Institute courses on Athapaskan.